Sensors: Smart RF Antennas for Reliable and Real-Time Sensor Networks

Wireless networks of sensor nodes cooperating among themselves for information gathering and analysis
are becoming an important platform in several domains. The area has seen growing research interest in
different layers - devices, communication, network protocols and to a limited extent, applications. For
sensor networks to become viable platforms for the large class of applications it is being targeted
towards, there is the need to consider the cross-interaction between the different layers. For example, the
fact that the sensors are equipped with smart antennas capable of power optimization should be utilized
by the routing protocols. The novelty of the proposed research is manifold. We propose to design a
sensor node that integrates innovative ideas for the radio frequency (RF) based communication device,
the MAC layer, and a fault-tolerant and real-time middleware. The integrated node will be used in building
a sensor network and evaluating the network for tradeoffs of performance, cost, robustness, simplicity,
and flexibility.
Uncertainty will be an undeniable fact of life with sensor networks in their real world deployments. The
uncertainty will stem from environmental variability (e.g., lack of line of sight communication), node
variability (e.g., faster drainage of battery than expected), traffic variability (such as, higher than expected
sensed data traffic due to frequent occurrence of the event of interest) and attacker induced variability
(e.g., jamming of the physical channels by a malicious intruder). In our research, we propose to provide
in-built support in the nodes to tolerate the uncertainty in the different dimensions. We propose several
novel low power modes of operation based on the features of our proposed smart antenna in the RF
communication equipment. Our proposed sensor node will be capable of not simply tolerating uncertainty,
but exploiting the uncertainty to its advantage. We propose to make use of limited mobility in case it
causes the neighbors of a node to be aligned in a narrow band. In such a situation, the antenna can be
switched from its omni-directional mode of operation to a lower power unidirectional mode.
Adaptivity of the sensor node will be another important driving factor in its design. The sensor node
should lend itself to reconfiguration in the face of uncertainty through easy to use mechanisms. In our
proposed node, a common thread of adaptivity will be built in at all the three levels under investigation.
The issues of trade-off between adaptivity or flexibility and performance, cost, and simplicity will be
considered for each layer as well as for the cross-interaction between layers. For example, at the
communication device layer, the key tradeoff against cost will feature prominently since expensive
antenna arrays can provide the flexibility we require, but at a cost infeasible for the sensor nodes.
Adaptivity at the system software level will focus on performing tasks on an as-needed basis, such as
activating the sensor only when there is an event of interest. Adaptivity at the middleware level will focus
on adjusting the communication and computation to tune the fault -tolerance and real-time quality of
service provided by the node.
The proposed research comprises three key tasks: (i) Building diverse and intelligent RF hardware on
electrically small nodes, which will enable more robust and lower power operation. The key issues
addressed here will be directionality, electromagnetically small size, and tradeoff between attractive
radiation shaping and cost and complexity; (ii) Building MAC and networking mechanisms which can
leverage the flexibility provided by the RF hardware and provide hooks to the middleware. The MAC and
network layers will balance the tradeoffs of resource cost against performance and optimize it based on
the application requirements; (iii) Building a middleware layer that optimizes the operations for fault-
tolerance and real-time requirements and balances these criteria against the cost and performance
impact.
Broad Impact in Technology and Teaching: An important goal of the research is to develop sensor
nodes with the new technology and create a sensor network testbed with the nodes equipped with
mobility. The testbed will serve as an intuitive and attractive vehicle for disseminating the research
results. This trend of popularizing research follows the earlier experience of the co-PI Rosenberg who has
developed and deployed locality aware wireless services (such as, printing services) on the Purdue
campus for widespread community use. The research findings will be disseminated to the RF, network,
and middleware research community through publications and conference presentations. This project will
help in teaching and training the graduate and undergraduate students who are implementing the
techniques and performing the testbed development and evaluation. The research results may be
incorporated in several graduate and undergraduate courses taught by the PI and the co-PIs (i-Fault
Tolerant System Designlt, ieAdvanced Course in Networkingl., ieDistributed Parameter Systemslr).